A Computer Laboratory for Calculus Reform

The institution's calculus revision initiative is being enhanced through the establishment of a laboratory of SUN workstations. Students can now see mathematics as a creative science that builds and analyzes models of real world phenomena and their enthusiasm for mathematics is kindled rather than dampened. The institution will match the funds of the grant.